Postdoctoral Reearch Fellowship in Chemistry

Mr. Richard Anthony Gibbs has been recommended for a Postdoctoral Research Fellowship in Chemistry Award. Mr. Gibbs doctoral degree will be from the University of California at Riverside under the supervision of Professor William H. Okamura. He intends to continue his research at Pennsylvania State University under the sponsorship of Professor S. J. Benkovic. Mr. Gibbs' area of Postdoctoral Research will be the design and preparation of catalytic antibodies for the aldol condensation.